Secure Knowlege Management 2004 (SKM 2004) Workshop; September 9-10, 2004; Buffalo, NY

The PIs have submitted a proposal to organize a workshop in secure knowledge management. The workshop will explore critical knowledge management security issues such as secure languages, secure knowledge sharing and secure content management, privacy and some other important topics. These topics are very important to fully understand the issue surrounding secure semantic web as well as securing knowledge management practices. This is one of the first workshops in this area and will enhance the state-of-the-art.